Using Conversational Agents to Foster Preschool Children's Science Learning and Engagement from Interactive Science Videos

Science television shows are an important source of informal learning and enrichment for preschool-aged children. However, one limitation of television programming is that it is largely a one-way, non-interactive medium. Research suggests that children learn best through active engagement with content, and that parents can make TV watching more interactive by co-viewing and talking with their children. However, many parents and other adults may lack the time or experience and comfort with science language and content to provide critcial just-in-time support for their children. This study seeks to take advantage of recent advances in artificial intelligence that now allow children to enjoyably interact with automated conversational agents. The research team will explore whether such conversational agents, embedded as an on-screen character in a science video, can meaningfully interact with children about the science content of the show by simulating the benefits of co-viewing with an adult. If successful, the project could lay the foundation for a new genre of science shows, helping transform video watching into more interactive and engaging learning experiences. This project is funded by the Advancing Informal STEM Learning (AISL) program, which seeks to advance new approaches to, and evidence-based understanding of, the design and development of STEM learning in informal environments. This includes providing multiple pathways for broadening access to and engagement in STEM learning experiences, advancing innovative research on and assessment of STEM learning in informal environments, and developing understandings of deeper learning by participants.

This project will develop interactive videos incorporating a conversational agent in three 11-minute episodes of a future children's animated television program. The videos will enable children to speak with the main character of the show as the character solves everyday science mysteries, thus priming children to engage in observation, prediction, pattern finding, and problem solving through scaffolded conversation. This study will be carried out in two iterative cycles with the goal of developing and testing the embedded conversational function for each episode. In each cycle, the project team, which includes experts in children's TV production, as well as educational and HCI researchers will develop the storyboard and conversation prompts and follow-ups, create animated videos based on the revised script, and create a mobile application of the interactive video integrated with the conversational agent. Field testing with 10 children will be conducted to iteratively improve the embedded conversational function. In the pilot testing stage, a controlled study will be conducted with 30 children in each group (N=120): 1) watching the episode with the embedded conversational function; 2) watching the episode with a human partner carrying out the dialogue in the script rather than the virtual character; 3) watching the episode with pseudo-interaction, in which the animated character asks questions but does not attempt to understand or personally respond to children's answers; and 4) watching the episode with no dialogue. Data collected from the experiments will be used to examine whether and in what ways use of a conversational agent affects children's engagement, attention, communication strategies, perceptions, and science learning, and whether these effects vary by children's age, gender, socioeconomic status, language background, and oral language proficiency in English. The project will provide a comprehensive evaluation of the feasibility and potential of incorporating conversational agents into screen media to foster young children's STEM learning and engagement.